Inverse Nodal Problems in Two Dimensions (Mathematics)

Dr. McLaughlin will develop algorithms for inverse nodal problems in two dimensions. In this new class of inverse problems the data is nodal positions, or zeroes of eigenfunctions, and the solutions are coefficients in differential operators. One dimensional inverse nodal problems for second order operators have been carefully studied using asymptotic forms for eigenvalues and asymptotic forms for nodal positions. In two dimensions the algorithm will be based on formulas which have been derived using variational principles. Interactive activities include teaching an advanced undergraduate or first year graduate level course on inverse spectral theory for bounded domains, encouraging and advising women mathematics students, and sponsoring a seminar presentation by a visiting woman mathematician. This project furthers VPW program objectives which are (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions. By encouraging the participation of women in science, it is a valuable investment in the Nation's future scientific vitality.